Memphis Educational Computer Communications Association

The Memphis Educational Computer Communications Association (MECCA) is an informal multicampus consortium newly formed for the purpose of promoting computer networking among Memphis educational institutions, as well as promoting access to the Internet and the NSFNET Backbone. This association will promote an interinstitutional network of campus computer resources for all educational institutions in Memphis metropolitan area. The University of Tennessee at Memphis will closely coordinate and serve as a technological catalyst for local networking and nationwide collaborations. It will coordinate with all the educational institutions in the area interested in video conferencing and distance learning, as well as collaborative research projects across the state. A primary goal of MECCA is to facilitate collaborative projects and sharing of resources between institution, including those outside the state. IT will provide management and information services to all Memphis area institutions. The universities need greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the schools to explore innovative educational resources.